Designing Effective Professional Development For Teachers of Science and Mathematics: A Video Collection

9819403
LOUCKS-HORSLEY

WestEd, WGBH-TV, the Boston Museum of Science, and Horizon Research, Inc. will produce, field test, and disseminate a collection of videotapes and accompanying learning materials to promote effective professional development for teachers of science and mathematics, grades K-12. The project is designed to address the problem that current approaches to professional development are inadequate to address reform mandates that call for teachers to learn and teach more challenging science and mathematics. The proposed materials are intended for people who design and conduct professional development and those who prepare professional developers. They will be based on the recent book, Designing Professional Development for Teachers of Science and Mathematics, produced by the National Institute for Science Education. The videotapes and companion print materials will illustrate the book's central thesis that all staff developers should consider a wide range of strategies when planning a comprehensive professional development program. They will show multiple examples of professional development strategies for both mathematics and science and for elementary, middle, and high school teachers.